Conference on Automorphic Forms and the Trace Formula; October 13-16, 2004; Toronto, Canada

The funds are being requested for US participants (junior faculty and graduate students) at the Automorphic Forms and the Trace Formula meeting which will be held at Fields Institute in Toronto, Canada in October 13-16, 2004. Many of the worlds leading experts in this field will give lectures at this conference which will provide participants access to a current and very active research topics in Number Theory.